High Plains Rural Systemic Initiative

9452803 Belgarde The project will establish a formal coalition among tribal representatives in the Upper Great Plains region. The coalition will include representatives from state and private agencies and from federally funded projects in the region, concerned with American Indians education. The PI and his executive committee will convene an organizing conference to begin discussions, reinforce connections, examine the implications of systemic reform, and identify an organizational structure to begin preparation for writing and submission of a Development project proposal.